Laser Studies of Energy Flow in Polyatomic Molecules

The Experimental Physical Chemistry Program supports Prof. George W. Flynn of Columbia University in his continuing studies on collision dynamics and relaxation of molecules with `chemically significant` amounts of vibrational energy. Prof. Flynn will prepare high energy or reactive donor molecules using excimer-pumped dye lasers or optical parametric oscillators and then monitor the final quantum state of the collision or reaction products using IR/VIS absorption or UV fluorescence. Doppler-resolved IR diode laser spectroscopy will yield information on the velocity of product molecules. Thus Prof. Flynn can determine the vibrational, rotational and translational energy of the energy acceptor (bath) molecules. The ultimate goal is to determine the energy transfer distribution function P(E,E'), i.e., the probability that a molecule, initially at an energy E, will undergo a collision induced transition to an energy E', with change in vibrational energy of E'-E. The PI will investigate the mechanism for excitation of quencher vibrational 'dark' states and will measure the distribution function at low temperatures (10K) to gauge the effects of collision velocity and complex formation in the relaxation process. The importance of the research is that it sheds light on the mechanism by which molecules dissociate, or break apart, and recombine. Normally, we assume that the loss of gain of vibrational energy is controlled by very strong collisions between molecules, but this is a gross approximation compared to the detail with which other processes, for example, the dissociation rate as a function of energy, are known. The distribution function that Prof. Flynn will obtain, when coupled with good theoretical calculations, should allow a much deeper understanding of the dissociation and recombination processes that are so important to combustion and atmospheric chemistry.